POWRE: Statistcs: Research, Education and Application

This work is funded through the Professional Opportunities for Women in Research and Education (POWRE) program as a Research/Educational Enhancement Project. The investigator proposes a research and education plan that: draws on the wealth of interdisciplinary applications of statistics; contributes to advances in model selection and resampling methodologies; and utilizes the new capabilities for developing computing environments and courseware. Statistical applications are making greater use of flexible, computationally--intensive modeling procedures. As a result, the issue of selecting appropriate models is an important one. The investigator plans to extend methods of model selection to robust regression, including least absolute deviation regression. These alternatives to least squares regression are very popular when the data come from heavy tailed distributions and when there are outliers. In the area of education, the investigator plans to integrate statistical theory and practice in a way not commonly encountered in undergraduate courses -- through in-depth case studies or labs. The labs raise interesting scientific questions that highlight the interdisciplinary framework in which statistics has developed; they employ new statistical methodologies, such as resampling methods and model selection techniques; and they are to be presented in an interactive programming environment. The investigator also plans to bring her technical skills in high--dimensional modeling to bear on an area of statistical application -- modeling growth of roots in the study of plants. Biologists are interested in learning about the effects of various environmental conditions on biosynthesis rates in growing plant tissues. Developing a model for the velocity of growth and for the elemental growth rate using innovative nonparametric methodology would be very helpful in analyzing experimental outcomes.